Placental Transport in Viviparous Fishes

Viviparity in the vertebrates first evolved in fishes. The transition from ovipairty to viviparity established a series of new maternal-embryonic relationships, one of which involves the transfer of metabolites from mother to embryo. The proposed research will investigate the cellular basis of maternal-embryonic transfer of metabolites across a placenta and test an hypothesis about the evolutionary origin of that placenta. Goodeid fish will be used as a model system because their gut-derived placenta exemplifies one of the two major routes of placental evolution. Goodeid embryos develop within the ovarian lumen where they grow considerably (150X) due to absorption of maternal nutrients. Maternal nutrients are transported across the ovarian lumenal epithelium into the ovarian fluid where they are absorbed by the trophotaenial epithelium of the embryo. Trophotaeniae are external perianal projections of the embryonic intestinal epithelium. There are two types of trophotaeniae: long, ribbon trophotaeniae whose cells function in macromolecular endocytosis, and short, rosette trophotaeniae whose cells function in the transport of small molecules. The lumenal epithelium of the maternal ovary and the trophotaeniae of the embryo constitute a placenta. We will investigate the endocytotic and small molecule transport function of the trophotaeniae. We will also test our hypothesis that trophotaeniae are embryological and evolutionary derivatives of the embryonic hindgut and that the endocytotic and small molecule transport configurations of ribbon and rosette trophotaenial cells are alternative and successive states in one sequence of differentiation. To achieve these goals, we will determine the kinetics of small molecule uptake and macromolecular endocytosis, elucidate the receptor recycling pathway, characterize enzymes of the endosomal-lysosomal pathway, and analyze the structural differentiation of trophotaenial cells and their putative evolutionary and embryological precursor, the intestinal absorptive cell.